The Kuroshio Intrusion into the East China Sea

The dynamics of the landward intrusion of the Kuroshio current into the East China sea and the lateral mixing induced by such intrusion will be studied with a high-resolution regional ocean circulation primitive equation model. The specification of the open boundary conditions and the treatement of the steep coastal topography are the major challenges of this study.